Specification and Estimation of Empirical Micro Models in Economics

Many policy analysts recommend higher energy taxes as a way of dealing with environmental problems such as global warming. An important potential objection to the use of higher energy taxes is the claim that they are regressive. Another major concern is the effect of these taxes on economic efficiency. Both the progressivity issue and the efficiency issue require estimates of demand curves or at least elasticities to quantify the effects. Thus they require specification of a demand function. The contribution from this project comes from developing new nonparametric estimation approaches to estimation of demand curves and the related efficiency measures. The progressivity estimates and efficiency estimates obtained using these new procedures will be robust to demand curve specification. The project will estimate models of gasoline demand using household data collected by the Department of Energy for the years 1979 through 1988 where over 18,000 observations are available. It will estimate the progressivity effects and efficiency effects of gasoline taxes by income and expenditure class and by geographical region to. The project will also use data from the Department of Energy to estimate the demand for consumer durables. Durables such as air conditioners and refrigerators have both important environmental effects and energy using effects. The methodological research on nonparametric estimation of demand functionals has four parts: the comparison of parametric and nonparametric approaches for demand curve estimation, derivation of exact welfare measures in the nonparametric case, derivation of asymptotically normal sampling distributions for welfare measures in the nonparametric case as well as the parametric case, and analysis of the sensitivity of the welfare measures to components of nonparametric regression estimators such as kernel choice and window width.